Presidential Young Investigator (PYI) Award

The proposed research involves innovative groundbased observations of Jupiter's magnetosphere and Io's extended atmosphere. The goals (1) to understand the interaction between Jupiter's plasma and Io's atmosphere, and (2) to study the causal connections between Io's highly-variable volcanoes, its extended atmosphere, and the plasma torus.